Sensors: Multi-Sensor Information Processing with Automotive Applications

Technology advancement in automotive engine, transmission, and emission aftertreatment systems has
ushered in new challenges in developing sophisticated information processing and control strategies to
optimize vehicle performance at reduced costs. Sensor information processing is of vital importance in
this pursuit. Optimal utility of low-cost sensors, information coordination of multiple sensors, and
estimation of internal states and system parameters using sensors of limited capability and accuracy have
become one of the key design considerations.
Using automotive systems as a key platform, and gasoline direct injection engine and its aftertreatment
system for methodology development and implementation, this project will investigate the following
fundamental issues on sensor information processing: (1) How can one identify system parameters or
estimate internal states by using low-cost sensors that provide only limited information and accuracy? (2)
How can one maximize the information utility of multiple sensor systems? (3) What is the impact of
sensor location configuration and characteristics on performance benefits and costs? Due to high
nonlinearity, large uncertainty, and sensor limitations, these issues are extremely challenging, and
demand new methodologies and implementation technologies that will push forward the frontiers of
system identification and practical sensor information processing.
Intellectual Merit of the Project: With over 220 million registered vehicles and 2.8 trillion miles of
annually traveled distances, the US automotive industry bears an enormous impact on the national and
global economy, safety, and environment. This project will develop an innovative methodology of multi-sensor
identification and estimation, on the basis of extensive past research effort from the PI and his
collaborators. In collaboration with researchers from the automotive industry, findings from this
investigation will be employed and implemented to design better control and adaptation strategies in
automotive systems for improved performance.
Successful completion of this project will also introduce new identification and sensor information
methods that go much beyond what is known in these fields. In particular, it will lead to new multi-sensor
identification methods that use binary-valued and other nonlinear sensors, and new understanding of
implementation issues on practical sensor information processing. In light of tremendous sensor
development effort in many application areas, such as gas content sensors, biosensors, wireless medical
sensors, nanosensors, etc., which will all demand advanced and new information processing techniques to
maximize their capabilities and utilities, this project anticipates such emerging requirements for sensor
information processing methodologies, and develops generic methods that will see increased utility when
new sensors are developed.
Broad Impact: Beyond the automotive powertrain platforms, the findings from this project will have
direct utility in a wide array of applications, including vehicle rollover prediction, fault diagnosis of fuel
cell systems and vehicles, computer network traffic control, medical sensor information processing, and
process control problems. The PI and his industry collaborators are currently pursuing methodology
enhancement, technology transfer, and device development in these areas.
This research project encompasses fundamental research and technology development across a wide
range of disciplines. It targets directly at a broad and important automotive application; involves
mathematics modeling, sensor signal processing, and system identification; and utilizes the most
advanced facility at Ford Motor Company. As such it provides participating undergraduate and graduate
students an excellent opportunity to be exposed to a large spectrum of scientific and technology frontiers
with fundamental methodology development, hand-on design skills, and industry experience. The
research findings and course material from this project will be widely disseminated in professional
conferences and journals. Software packages resulted from this project will be released through the
project homepage for the public use free of charge.